Topics in Theoretical Physics

This work in nuclear theory will use perturbative QCD techniques to study the short distance nature of meson production in nuclei, glueball production and electroproduction of baryons. The results will be relevant for future experiments being planned for CEBAF.